New Bounds for Automorphic L-Functions

The principal investigator intends to prove new subconvex bounds for
automorphic L-functions or improve on existing subconvex bounds. Such
bounds reflect the arithmetic nature of their source objects as they cannot
be derived from simple analytic principles. In return, they provide the key to
the solution of several deep diophantine problems addressing equidistribution
phenomena. Proving these bounds unconditionally also sheds light on the
Generalized Riemann Hypothesis as they are consequences of it. In the focus
of the proposal are families of GL(2) x GL(1) and GL(2) x GL(2) type. The
techniques leading to subconvex bounds for these families have so far been
restricted to the field of rational numbers or holomorphic forms. The principal
investigator will try to extend these techniques to totally real number fields and
non-holomorphic forms.

This proposal belongs to the theory of integers. Because of their fundamental
character, integers are at the source of many theoretical and practical
constructions including algorithms for secure communication through the internet
or efficient communication through a noisy channel. Automorphic forms and
their L-functions are among the mathematical objects that make the hidden
symmetries of integers visible. It has been observed, but not proved rigorously in
a single instance, that the zeros of every automorphic L-function are distributed
in a very special way. This observation is the Generalized Riemann Hypothesis
which implies many otherwise unknown properties of the integers. For various
important questions a weaker hypothesis, concerning the size of L-functions,
suffices. The principal investigator intends to prove new instances of this weaker
hypothesis.